SGER AWARD: A Potential Example of Fold Growth Due to Kink-Band Migration on Near Earthquake-Cycle Timescales

One of the most active debates in structural geology over the last 20 years has focused
on the existence of folds formed due to kink-band migration (e.g. the fault-bend (FBF) and
fault-propagation (FPF) folds).A suite of folded geomorphic surfaces in western Argentina
have been identified that apparently display the essential geometrical characteristics of folding
due to kink-band migration. Because the folded surfaces are closely associated with flexural
slip surface faulting in an earthquake in 1944,this site may contain the first evidence of kink-
band migration on near earthquake cycle time scales. The primary purpose of this exploratory
research is to establish whether the structural geometry of a suite of folded geomorphic
surfaces is consistent with fundamental predictions of kink-band migration fold growth. The
present knowledge of their structural characteristics is limited, however, which precludes clear
definition of their potential for providing new insight into kink-band migration and folding
mechanisms in general. Thus, an exploratory grant is sought to develop an initial data set from
these unique, superbly exposed surfaces to define more clearly the potential and direction for
future investigation. Key objectives of this initial investigation include:(1)understanding the
geometrical evolution of folds at the spatial and temporal scale of successively younger
geomorphic surfaces;(2)detailed characterization of the geomorphology of the surface of an
actively growing emergent fold in which fold growth and erosion/deposition are out-of-phase;
and (3)determination of the extent to which kink-band migration folding is the mechanism by
which this fold is growing. These data and analyses will help to frame more explicitly
questions regarding the structural and geomorphic evolution of this and other growing folds in
the region, the interplay between fold growth and intervening periods of erosion and
deposition, and the incremental growth of folds at near-earthquake time scales. Increased knowledge of fold growth on this time scale has potential impacts for understanding the earthquake hazard associated with active blind faults, the interpretation of fold growth history from syntectonic strata, petroleum exploration in basins characterized by syntectonic sedimentation and in regions of basement-involved thrusting, and fault-related fold models.